RIA: Extracting Information from Digital Video Motion Sequences

9309135 Shvaytser This is the first year of a three-year continuing award. This research will investigate what information can be extracted from sequences of several frames taken from a scene with temporal variations. Most computer vision techniques use still images, or pairs of still images, to analyze a scene. Yet, video cameras capable of providing dense video motion sequences are just as affordable as still image cameras. New Algorithms will be developed for computing optical flow and dense displacement fields, 3D structure and motion, and for object recognition. The emphasis will be on developing algorithms that can take advantage of more than one or two image frames. The approach to flow computation involves investigating alternatives to the classical view that image flow can be computed as a minimization problem, defined in terms of multiple constraints. While 3D structure and motion can be computed from accurate flow, robustness requires rigidity assumptions and segmentation. Alternative approaches will be investigated, based on avoiding flow computation, and instead, fitting simple models to the structure and motion in small patches. The approach to object recognition will be to investigate shape invariants that can be automatically extracted from the scene by learning techniques. ***